U.S.-France Cooperative Research: Analysis and Synthesis of Nonlinear Time-Varying Control Systems

9910030
Teel

This three-year award for U.S.-France cooperative research in electrical and communication systems involves Andrew R. Teel and Petar Kokotovic of the University of California, Santa Barbara, and Antonio Loria of the Laboratoire d'Automatique de Grenoble. The project, supported under a program of the National Science Foundation and the French National Center for Scientific Research (CNRS), will facilitate the development of new uniform stability analysis tools for time-varying systems and robust control design following a passivity approach. In particular the investigators will focus on control laws for tracking control and time-varying stabilization of nonlinear nonautonomous systems (NLTV). In parallel to their theoretical study, the investigators will apply the new theorems to particular problems such as tracking control of electromechanical systems, under actuated manipulators, and autonomous vehicles.

The project takes advantage of U.S. and French complementary expertise in the techniques used in the field of nonlinear control. Their joint efforts will advance understanding of adaptive control of time-varying systems when the unknown parameters appear nonlinearly in the dynamics.